Conference Support to the Engineering Research Centers and the Industry/ University Cooperative Research Centers in FY 2004

This award provides funding to the Integrated Media Systems Center (IMSC) at the University of Southern California for a subaward to Ann Becker and Associates, Inc. to provide conference planning and support services to the Engineering Reserach Centers (ERC) and the Industry/University Cooperative Research Centers (I/UCRC).